Biotechnology in Secondary Education

Biotechnology in Secondary Education is a three-year project which offers intensive two-week courses to high school biology teachers each summer. Each year a new group of 80 teachers will take a Bioethics course and either Biotechnology, Immunology, Human Genetics, or Infectious Diseases. A Biotechnology Instruction Resource Network, designed to provide longitudinal contact with Institute participants will be established and run by Master Teachers who have been participants. An equivalent of 35 percent of the NSF award is being contributed by the University of Rochester School of Medicine as cost sharing.